Gordon Research Conference on the Chemistry and Physics of Nanostructure Fabrication, June 23-28, 1996, Henniker, NH

9634176 Storm This project supports the attendance of advanced U.S. graduate students at the 1996 Gordon Research Conference on the Chemistry and Physics of Nanostructure Fabrication. The conference, to be held June 23-28, 1996 at the New England College in Henniker, NH, is organized by Margaret B. Stern of MIT Lincoln Laboratory (Chairman) and John N. Randall of Texas Instruments (Chairman-Elect). The science of nanostructure fabrication is vital not only to today's information revolution but to the fields of imaging and manipulation of chemical and biological structures. Future progress in all these disciplines is paced by advances in the science and technology of nanofabrication that will be discussed at this conference. The conference format - a week of continuous interaction with experts in interrelated fields in a casual setting - provides a particularly rewarding opportunity for graduate students to exchange ideas with and to learn from this gathering of leading researchers. %%% This award integrates science and education by enabling graduate students to interact directly with forefront researcher in the field of nanostructure fabrication. ***